Dynamical Systems, Stochastic Approximation and Applications

9802182
Hirsch

This project will study dynamical systems enjoying a strong comparison
principle, and their applications to evolutionary stochastic approximation
processes. The structure of invariant subsets will be investigated,
especially attractors and attractor-free sets. New means of ascertaining the
existence, stability and periods of periodic and subharmonic trajectories of
monotone systems of ordinary and partial differential equations will be
obtained. These results will be applied to stochastic processes in which
long-term behavior of sample paths is closely related to asymptotic
behavior of an associated deterministic vector field that points in the
direction of expected changes in state vectors. In some cases the
dynamics of the vector field is simple enough that one can derived precise
information on clustering of sample paths as certain parameters (e.g.,
population, in epidemic models) becomes large. Specific applications
include models of spread of infection disease, price adjustment, and
repeated adaptive games.

For many real world phenomena it is useful to have precise mathematical
models capturing a few important features. In order to manage the spread
of an infectious disease, for example, it is important to know whether it is
better to budget for increasing cure rates, reducing contact rates, or
isolating the most infected subgroups. Mathematical models are used to
give precise theoretical answers to such questions; if the model has been
validated by observation or experiment, specific practical steps can be
taken. This project will investigate, on a theoretical level, mathematical
systems of this type. The technical results apply also to other situations.
One of these is price adjustment and stability of markets; it will be shown
that prices can be expected to stabilize when goods are similar, price
changes are small and sellers have good estimates of the intrinsic marginal
demand for their own products. Another is to repeated games where
information is uncertain; such systems are often used to model bargaining between individuals, corporations or governments. The project will show that certain types of long-term strategies lead to convergence of behavior.